SBIR Phase II: Offline Edge Learning Management System

The broader/commercial impact of this Small Business Innovation Research (SBIR) Phase II project will be in helping to close the homework gap in the United States. The homework gap has been a long simmering problem where many K-12 students do not have reliable home internet to complete digital homework. This project aims to use new advances in web technologies and intelligent agents to provide a software solution that will enable any student to participate in a complete digital homework workflow including interactive lessons, videos, and robust teacher feedback even when they have unreliable or no access to the internet. Unconnected adult learners will also benefit from the project as technical skills training including computer programming will be supported. This solution will assist in filling the key technical skill gaps in the American workforce.

This SBIR Phase II project will advance a new homework management system that will support digital learning with consistent experience for learners that are online, offline, or in degraded network conditions and on any available devices. Through an innovative offline-first distributed architecture that solves complex problems around state divergence and conflict resolution, user identity, system integrations and offline content management, this system attempts to bring access to learners who have historically had limited or no access to at-home digital homework solutions. The system will utilize intelligence at the edge to facilitate effective, research-based, pedagogical approaches to improve learning outcomes and minimize teacher overhead. Pilot programs and user feedback studies, along with custom-built learning model simulators will be used to evaluate and iteratively refine the system's efficacy. The goal of this project's research and development will be the release of a production-ready, scalable homework management system that makes positive progress toward bridging the homework gap.